Visuomotor Control by Large-Scale Distributed Cortical Networks

9511804 Steven Bressler The aim of this research project is to understand how different parts of the brain work together to allow us to move based on what we see. These scientists are designing sophisticated computer analysis techniques to measure properties of brain signals that occur when the brain must interpret visual patterns and use the information to make a movement. In previous research by these investigators, brain waves from the visual and motor parts of the cerebral cortex were found to briefly become aligned when the brain was deciding how to respond to a visual pattern, suggesting that the alignment od wavelike signals in the cortex is important for brain function. The objectives of this project are: (1) to observe how the normal brain processes visual input signals and transforms them into motor command signals, and (2) to advance our general understanding of similar large-scale integration problems which arise in many engineering applications.